Collaborative: Planning Proposal for I/UCRC Center for Health Information and Decision System (CHIDS)

An Industry/University Cooperative Research Center (I/UCRC) Planning meeting will be conducted to determine the organization and viability of forming a new multi-university I/UCRC for Health Information and Decision Systems with the University of Maryland as the lead, and the Massachusetts General Hospital as a research site. This new Center aims to advance the science of information technology implementation and decision analysis in the health care sector and to better understand its impacts at all levels, including organizational, provider, and individual outcomes.